Conference and Summer School in Algebric Topology

Abstract

Award: DMS-0420383
Principal Investigator: Haynes R. Miller

This award funds travel, particularly by junior researchers, to
an international conference and summer school on topology to take
place in Hanoi, Vietnam, in August 2004. The focus will be on
applications of the Steenrod algebra to problems in topology and
algebra. Three short courses will form a summer school preceding
the conference to introduce students to background material. A
number of the developments to be discussed in the conference grow
out of the solutions of the Segal Conjecture and the Sullivan
Conjecture, and topics may include invariant theory and
representation theory of the general linear group, polynomial
functors, Mac Lane homology, topological cyclic homology, the
study of p-compact groups and p-local finite groups, and the use
of the Burnside ring in splittings of classifying spaces.

The conference will bring together mathematicians working in
topology, representation theory, invariant theory, and group
theory. The interest in this work is truly global: at least 21
countries employ mathematicians we intend to invite. The summer
school will attract younger people and enrich the exprience for
them.